Ionic, Atomic and Molecular Physics

9877041
Pritchard
This experimental program combines two major foci, metrology in the form of ultraprecise mass comparison of individual trapped ions and atom and molecule interferometry with both thermal beams and Bose-Einstein condensates. Combined, these two activities will allow a competitive determination of the fine structure constant and a benchmark measurement of the polarizability of alkalis.